Collaborative Research: Approximate Fictitious Play for the Optimization of Complex Systems

The prevalence of advanced computing technology has resulted in
> increasingly complex simulation models of manufacturing,
> telecommunication, logistic, transportation, supply chain and other
> engineering systems. Such models often lack mathematical properties
> that have traditionally been essential to the development of efficient
> computational procedures for determining an optimal system design.
> Consequently, the need arises to develop new optimization algorithms
> that remain efficient even in the absence of simplifying mathematical
> structures. This research investigates the analytical and practical
> potential of computationally efficient variants of Fictitious Play
> (FP), an iterative technique from the mathematical theory of learning,
> as an optimization paradigm to achieve this goal.
>
> The key idea is to model the optimization problem as a game of common
> interest between artificial "players" that correspond to components of
> a carefully chosen partition of the design variables. The shared
> interest of these players is to optimize the metric of system
> performance. Theoretical justification for this approach is rooted in
> the well-known fact that for games of common interest, limit points of
> FP are Nash equilibria and thus may be viewed as a type of local
> optimum. The research builds on the investigators' earlier work on
> Sampled Fictitious Play (SFP), a modification that replaces the
> exceptionally demanding expected utility calculations in FP with their
> sampled approximations while still preserving FP's theoretical
> properties. The work will culminate in a powerful and rigorous suite
> of algorithms the investigators term Approximate Fictitious Play
> (AFP), where the "players" interact with one another by calculating a
> best response to a sample of strategies independently and adaptively
> chosen from a probability distribution over their history of past best
> responses. A major computational benefit of AFP is that the best
> response subproblems are embedded in and significantly smaller than
> the original optimization problem, leading to a dramatic increase in
> efficiency compared to finding jointly optimal strategies.
> Traditionally, simulation models of complex systems have been employed
> as descriptive tools to test "rule-of-thumb" alternatives suggested by
> a knowledgeable user. The AFP paradigm promises to make these models
> prescriptive as its convergence and optimality properties do not rely
> on regularity conditions that such systems and models are unlikely to
> exhibit.